0-1 Semidefinite Programming: Modeling, Theoretical Foundation, Resolution and Applications

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

0-1 Semidefinite Programming (0-1 SDP) is a new optimization model
that covers several classes of challenging nonlinear integer
programming problems. 0-1 SDPs arise frequently from numerous
applications in various domains such as learning, communications and
facility location. However, in spite of its broad range of
applications and the computational challenge it poses, little is
known with respect to the new optimization model except few results
scattered in the literature. In this project, the PI and his
research group will study the theoretical foundations of the 0-1 SDP
model including identifying polynomially solvable cases of the model
and exploring its theoretical limitations from an optimization
perspective, develop resolution techniques for this new class of
problems such as effective exact algorithms and scalable
approximation algorithms that can deal with large size problems, and
apply the new modeling and resolution techniques to problems from
various disciplines.

The primary goal of the project is to study a new optimization
model that can be applied to a broad range of domains such as
learning and engineering design, and to develop reliable and scalable
resolution tools for such a model. Creative modeling techniques are
crucial for capturing the problem semantics in many applications. For
example, in multi-agent learning, every agent might have a
different objective and solution to the same problem. It is
important to integrate various opinions and solutions from the
agents to have a more comprehensive understanding and achieve a
global objective. The new optimization model in this project
provides a powerful approach for multi-agent learning. Reliable
and scalable computational methods are essential for learning from
massive and noisy data set.